Domain Decomposition Methods: Algorithms and Theory

The development of numerical methods for large algebraic systems is
central in the development of efficient codes for computational
fluid dynamics, elasticity, and electromagnetics.
Many other tasks in such codes parallelize relatively easily.
Algebraic system solvers therefore remain very important now that
an increasing number of parallel and distributed computing systems, with
a substantial number of fast processors, each with a relatively large memory,
are becoming widely available. A very desirable feature of domain
decomposition algorithms is that they respect the memory hierarchy of
modern parallel and distributed computing systems, which is essential
for approaching peak floating point performance. This is important
since the cost of communication often can dominate for large computer
systems. The domain decomposition methods are also relatively easy to implement
and they have an increasingly solid theoretical basis, which shows that the
rates of convergence of these preconditioned Krylov space methods are
independent of the number of subdomains and grows only very slowly with
the dimension of the subproblems allocated to individual processors.
In each iteration step, local problems representing the restriction of the
original problem to a potentially large number of subregions are solved
exactly or approximately. The subregions, which can be allocated to
individual processors of a parallel computer, form a decomposition of the
entire domain of the problem. In addition, the inclusion of a coarse
component often substantially increases the efficiency of the preconditioner
and can dramatically reduce the CPU time. This project will combine
mathematical analysis with the design and numerical testing of algorithms.
Each class of applications, e.g., elasticity, incompressible fluid flow,
and electromagnetics, requires special considerations and,
in particular, the design of an appropriate coarse solver, for the problem
at hand, is crucially important. Among the applications to be considered
are incompressible Navier Stokes equations, Reissner-Mindlin plates,
Maxwell's equations, nonlinear elastic contact problems, and those arising
in forced vibrations and acoustics. Work will also continue on developing
analytic tools, which also are applicable to very irregular subdomains
such as those obtained from mesh partitioning software.

The overall goal of this work is to provide improved computational methods
for the engineering and scientific community. A special emphasis is on
methods that can be used effectively on modern parallel and distributed
computer systems; these systems have many processors and fast networks
for the communication between the processors. In many design problems, such
large scale computing resources are required in order to take complicated
geometry and rapidly varying displacements or velocities into account and
standard computing systems have often proved to be inadequate. Led by the
US national laboratories and the computer manufacturers, large scale parallel
computing systems are being developed rapidly and these systems are by now
also available to practicing engineers, who, e.g., test building design
under the impact of earthquakes, prior to certification and construction,
or machine parts under realistic operating conditions, prior to making
prototypes. This work requires access to software systems and ultimately
to reliable methods to approximate complicated scientific or engineering
models. In many applications, accurate predictions often require massive
amounts of data to describe the geometry and material properties accurately
enough. The design of methods to extract the solution of such problems
requires different algorithms for different applications such as the
design of buildings, the propagation of electromagnetic waves, or
fluid flow in oil fields. This project is focused on mathematical analysis
of these issues and the design of improved methods. Experience of such
efforts in the past clearly indicates that insight gained from such work
can greatly improve the efficiency and reliability of computational practice.
This work is a collaborative effort with leading developers of methods
and software systems at the SANDIA National Laboratories at Albuquerque, NM,
and at the University of Essen, Germany.